Preparation and Properties of Supported Zeolite Membranes

CTS-9504901 Gavalas Cal Tech The fundamentals of in-situ formation of zeolite films on porous substrates will be studied in order to synthesize membranes of high permeance and selectivity. Films of ZSM-5 and zeolite A will be grown on porous alumina plates or tubes placed in clear solutions of suitable compositions maintained at appropriate temperature and autogeneous pressure. Control of crystal size, film quality and thickness will be achieved by varying the pore size of the substrate and synthesis conditions. Characterization and permeation experimelts will be performed to evaluate the performance of the membrane in important gas separations. The research may lead to the development of improved zeolite membranes with potential applications in separations, catalysis and reaction engineering.